MathThread: Distance Learning and Outside-of-Class Collaboration for Math

The primary objective of this project is to develop adequate communication tools within mathematics courses delivered by web-based distance learning technologies. Web-environments for distance learning college courses do not provide basic communication tools for math courses. Also in face-to-face math courses, commuter students especially, need to collaborate outside of class. Assessment of distance math instructors indicates they wish to create/edit math notation, conceptual diagrams and graphs directly in online postings. The goals of this project are: 1) Provide math instructors and students with direct creation/editing of math notation, conceptual drawings and graphs in online postings. 2) Adapt existing web-based and face-to-face college math courses to include basic communication tools for math. 3) Provide faculty development/support for re-design of distance ed. math courses. 4) Research more natural/diagrammatic math communication and math learning. 5) Spread basic math distance ed. communication tools.